Cardiac Network Dynamics

The objective of this research is to use the most advanced computing environments and the most efficient computational techniques available to study the long term dynamics of normal and abnormal electrical activity in heart tissue. A patch of heart tissue is modeled as a two- or three-dimensional grid of cells the electrochemical activity in each cell being modeled by systems of nonlinear ordinary differential equations (ODE) and with resistive coupling between each pair of cells. We propose to directly simulate a nonlinear partial differential equation (PDE) formulation of the system to examine the long term dynamical behaviors such as frequency entrainment in pacemaker sinus cells, the development and propagation of arrhythmias in the normally quiescent atrial cell tissue and the interaction of the normal pacemaking activity and abnormal atrial ectopic beats in combined sinus node-atrial tissue. The solution of the system of coupled ODEs have been approximated using an explicit numerical integration method on both the CM-200 and CM-5 Connection Machines but due to the stiffness of the equations, we have been restricted to medium length simulations of two-dimensional long-time simulations of both the PDE and ODE formulations. This research will not only advance the current state-of-the-art in scientific computing, but will also further our understanding of cardiac dynamics under both normal and abnormal conditions.